Evolution of Persistent Abstract Data Types

Persistent programming languages provide a simple mechanism to make data persistent without the impedance mismatch that occurs when storing data in a database. As a result, persistent programming languages greatly facilitate the development of software that uses persistent data. A serious problem exists when maintaining programs written in persistent programming languages. The storage format for persistent data is derived from the structural representation of the data's type as defined in the program. When the representation is changed, the software is no longer able to access existing persistent data. This research addresses the problems of type evolution . It is developing algorithms to recognize complex type changes, to assist the software engineer in assuring that persistent data conform to modified semantics of the software, and to assist in identifying and updating code affected by structural changes to a type. The approach relies on persistent types defined as abstract data types. Type changes are identified by comparing the interfaces to the types, the structural representations of the types, and constraints attached to the types. The algorithms are being incorporated into a tool that provides computer-aided type evolution support. The primary goal of the tool is to manage the complexity of type evolution and provide assurance that evolution issues are addressed by the software engineer while not restricting the ways in which the software engineer modifies type definitions. A secondary goal is to automate data evolution for a collection of well-understood type changes. The combination of flexibility, automation, and concern with semantic issues is expected to provide advances over existing type evolution support systems. Experimentation is using histories collected from the development of real systems to evaluate the effectiveness of the algorithms.